Development of a Course in Environmentally Concious Design and Manufacturing for Undergraduates

Engineering-Other(59) A multi-disciplinary group of faculty and industrial leaders is working to bring the examination and implementation of environmentally and economically sustainable industrial practices to Kettering University's curriculum and its unique co-op education program. As an initial step toward this goal, the PIs are developing an introductory course that provides undergraduate engineering, science and management students with the skills needed to critically examine environmental issues in product design and manufacturing, and to arrive at economically viable solutions to these problems. The course is structured on a modular design, where each topic incorporates case-based pedagogy, industrially relevant examples and regular assessment - a design that is adapted from the Ford Motor Company's Partnership for Advanced Studies classroom materials. Instructional content is being compiled by Kettering University faculty members in conjunction with industry experts and partner academics. Progress in course development is being disseminated at professional conferences.